Mathematical Sciences: Phase Space and Functional Integral Methods in Forward and Inverse Wave Propagation

This work addresses wave propagation in extended, inhomogeneous, multidimensional environments capable of channeling energy over many wavelengths. Sound propagation in the ocean and electromagnetic guided-wave propagation are two examples. The objective of this research is to further develop and apply "microscopic" phase space (pseudo-differential and generalized Fourier integral operator) methods and global path integral constructions to derive new multidimensional algorithms for forward acoustic propagation and generalized acoustic tomography at the level of the n-dimensional scalar Helmholtz equation.